REU: Marine Sciences Summer Intern Program

SHARP 9424146 This project is a renewal of a REU SITE that has been in operation for eight years. It provides research opportunities in the field of physical, chemical and biological oceanography as well as marine geology and biochemistry. It also acquaints them with the excitement and opportunities of academic research and encourages them to pursue graduate studies and a career in research.